Student and Junior Faculty Travel Support for Engineering Sustainability 2009: Innovations that Span Boundaries

CBET-0828664
Beckman

The Mascaro Sustainability Initiative of the University of Pittsburgh and the Steinbrenner Institute for Environmental Education and Research at CMU will host a conference entitled "Engineering Sustainability for 2009: Innovations that Span Boundaries." It will be held in the David L. Lawrence Convention Center in Pittsburgh, PA, from April 19-21, 2009. About 300 participants are expected. This conference will bring together engineers and scientists from academia, government, industry, and non-profits to share results of cutting edge research and practice directed at the development of environmentally sustainable buildings and infrastructure. Plenary talks and concurrent oral and poster sessions will be organized around the following themes: green building design and construction; greening the indoor environment; sustainable distributed power for the built environment; sustainable urban drinking water, stormwater, and wastewater infrastructure; design of more sustainable transportation grids; using principles of sustainability to foster innovation and economic development.